Turbulence and Vortex Interactions with Shock Waves

This research project is designed to investigate experimentally the interaction of a shock wave first with homogeneous/isotropic flow and second with a longitudinal or traverse vortex in the so called vorticity mode. Specifically, the research will focus on the phenomenon of turbulence and vorticity amplification across an unsteady shock propagating inside the flow and the distortion/deformation of the shock by turbulence or vortex. A shock wave which is formed inside a shock tube, passes through a grid and the induced flow behind the shock has the features of a compressible flow with free stream turbulence. The decaying turbulence is subjected to interaction with the reflected shock and travelling in the opposite direction. In the vortex/shock wave interaction, the induced flow over a transverse circular cylinder or a small delta wing at incident will generate the required vortices with transverse or longitudinal vorticity respectively. Preliminary results indicate that turbulence amplification is not the same for all investigated turbulence intensities and length scales during interactions with the shock waves of the same strength. The proposed program with its unique characteristics will provide the opportunity to a number of minority students in Mechanical Engineering to participate in an advanced research project aimed at a better understanding of compressible turbulence. Minority students will be exposed to the-state-of-the-art in experimental and computational techniques and, therefore, will be encouraged to enter research careers.